2021 NSF Campus Cyberinfrastructure PI Workshop

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

The 2021 Campus Cyberinfrastructure Workshop builds upon the success of the previous Campus Cyberinfrastructure Workshops providing an opportunity for recipients of all active NSF Campus Cyberinfrastructure (CC*) awards to meet in-person, exchange project findings, interact with national cyberinfrastructure experts and collaborate across project areas and project regions. Due to the on-going pandemic, the 2021 PI workshop will be conducted virtually. The advantage of conducting a virtual workshop is the flexibility of the virtual environment for broader participation of additional CC* award project collaborators such as co-PIs, researchers, and other campus representatives to participate in workshop conversations without the additional time demands and travel expenses for participation. The workshop program will encourage interactions among the PIs with the broader R&E community through invited participation of cyberinfrastructure experts and representatives from regional and national networks. As demonstrated before, the broader scope encourages relationships between campus cyberinfrastructure, science driven applications, and regional and national cyberinfrastructure resources.

The intellectual merit of this project is the interaction between national cyberinfrastructure experts, exchange of project findings and collaboration across project areas and regions, all of which will lead to the new ideas, relationships, and collaborations associated with a focused workshop. The workshop breakout sessions will provide the opportunity for program PIs and co-PIs to gain exposure to other cyberinfrastructure technologies or resources. The workshop furthers the development of cross-discipline, regional, and national collaborations on cyberinfrastructure to support science research and education applications. By including awardees from all areas of the CC* programs, the workshop facilitates interaction and collaboration between research intensive and under-resourced colleges and universities, as well as different cyberinfrastructure program areas, in ways that would not otherwise occur.